Advanced Software Applications and Development Laboratory

A laboratory is being developed in which students can master multitasking software applications and develop applications using symbol manipulating systems and expert systems shells. Students are working with high-level MSDOS-based microcomputers configured with sufficient memory, processing speeds and graphics capabilities to run advanced MSDOS software.